Travel support for US scientists to attend GR17

This award will enable U.S. scientists to attend GR17 (the 17th International Conference for General Relativity and Gravitation). The travel funds will allow U.S. researchers, including young researchers, to present their work at the international meeting and learn of new results.